Mathematical Sciences: Complex Analysis and Applications

9322766 Forstneric The research involves the geometry and dynamics of holomorphic vector fields in complex Euclidean space. Connected with this are problems of convexity type which entail analysis on the polynomial hull. The scope of projects has potential applications to complex dynamical systems and the geometry of partial differential equations. The overall area of several complex variables in which the research falls, has long-standing applications to elasticity theory and other areas of enginnering science. ***